Detection and Control of Ultracold Atomic and Molecular Fields

The main goal of the proposed research is to study the detection and control of ultracold
atoms and molecules, with particular emphasis on the use of storage rings and polar
diatomic molecules. Such rings, which are now being considered by several experimental
groups offer much promise for precise matter-wave interferometry, studies of ultracold
collisions and of the fundamental properties of quantum-degenerate atomic and molecular
systems with anisotropic interactions, and more generally the manipulation and control of
quantum-degenerate quantum matter. The proposed work is theoretical and will use a
combination of analytical and numerical techniques